US-India Planning Visit: Studies on the Signalling Pathway of Heavy Metal Toxicity in Cyanobacteria and Higher Plants

9908949
Nielsen

This award supports a planning visit for Professor Brent L. Nielsen, Auburn University to travel to the National Botanical Research Institute in Lucknow, India. During this two-week visit, Nielsen and Indian collaborator Vinod Kochhar will conduct the last in a series of experiments that will allow them to finalize their collaborative research proposal.